Electoluminescent Devices Based on Organmetallic Membranes

This grant is to fund a research project to develop multicolor thin film electroluminescent devices. The key to achieving high brightness and efficiency is the use of a new class of luminescent organometallic lanthanide complexes as emitter materials. Band widths as narrow as 10 nm csan be achieved using Tb+3 and Eu+3 complexes. Efficient injection type thin film electroluminescent devices require electron and hole injecting materials with low and high work functions respectively. By using organic hole conductors and alkali metal alloys as electron injectors, it will be possible to develop electroluminescent devices of high rightness and contrast for multicolor flat plate displays.